International Collaboration: Micro- and Nano-scaleTribological Study of Nano-Crystalline Combinatorial Composite Hard/Soft Coatings in Machining Applications

0218195
Bhat

This award will support Dr. Deepak G. Bhat and Dr Ajay P. Malshe to visit Dr. Mariana Staia, of the Department of Materials Science and Metallurgical Engineering of the Central University of Venezuela in order to plan a research collaboration on the fundamental tribological interactions of coated tools. While the need for durable surface-engineered tools has long been recognized, the tribology, chemistry, and physics of materials interactions at the mating surfaces and contact points between the tool and work-piece are not fully understood. For instance, stringent machining and frictional conditions require effective lubrication over a wide temperature range, where the stability of the coating may itself be compromised.

The visit will help to design a study that aims to improve the process of producing coatings for cutting tools with the potential of minimizing the need for coolants and lubricants in machining and lessening negative impacts on the environment. The US group will contribute their expertise in machining and processing while the Venezuelan side has the equipment and the expertise for tribological and metallurgical tests.